Materials Research Science and Engineering Center

9400415 Woodall The Materials Research Science and Engineering Center (MRSEC) at Purdue University focuses on heterostructure materials for electronic and photonic applications. The purpose of the Center is to develop enabling technologies in these areas of research with the long-term goal of facilitating the commercialization of new products using these technologies. The MRSEC is organized through two interdisciplinary research groups. The semiconductor misfit heterostructures group addresses problems associated with the development of semiconductor device technology using non-lattice-matched materials. The long term goal is to produce economically viable enabling technologies for fabricating photonic and electronic devices using unexplored semiconductor materials grown on non- lattice-matched substrates with optical and electrical properties matched to specific applications. The extrinsic control of heterostructure properties group focuses on important materials problems associated with light emitting and detecting devices fabricated from high-band gap semiconductors with composite semiconductor materials used for electronic, photonic and optoelectronic applications (especially nonlinear applications). The MRSEC supports programs for educational outreach and human resource development based on existing Purdue University efforts. Special focus is on the enhancement of programs for minority and women students. The MRSEC supports shared experimental facilities for the preparation, fabrication and characterization of heterostructure materials and devices. The center currently supports 10 senior investigators, 2 postdoctoral research associates, 1 technical staff member, 8 graduate students, and 10 undergraduates. The MRSEC is directed by Professor Jerry Woodall. ***